Engineering Research Deployment Teaching Initiative: Package on Processing of High Performance Materials by Rapid Solidification and Spray Deposition

9410143 Sastry This is an Engineering Research Deployment Teaching Initiative award to provide lecture notes and video tapes on rapid solidification processing and spray deposition of high performance materials to be used for transferring the university research into industrial manufacturing and production. The principal objective of this effort is to present in a concise and effective manner the vast research and development accomplished to date in these areas. Rapid solidification processing, with accompanying large undercooling and high cooling rates, originally used for the study of metastable phase formation, has emerged as a viable commercial method for the production of a wide range of extended solid solution alloys, dispersion strengthened alloys, intermetallics, and in-situ composites. Light weight, high strength aluminum alloys, high strength steels, oxidation-resistant nickel base superalloys, and high temperature alloys have been successfully produced by rapid solidification processing. The products that result from this grant will be usable as course material for senior undergraduate and graduate level students of manufacturing science in universities, for short courses, and for in-house training of materials and manufacturing engineers in industry.